Symplectic Topology via Lagrangian Fibrations

DMS-0204368
Margaret F. Symington

The Principal Investigator proposes to use singular Lagrangian fibrations to
gain insight into the topology of symplectic manifolds. The ultimate goal is
to develop an effective language for constructing and analyzing symplectic
four-manifolds, analogous to Kirby calculus for smooth four-manifolds.
This work lies at the intersection of toric geometry, integrable systems
and smooth four-manifold topology. Progress on this project will allow the
presentation of symplectic four-manifolds as generalized sums of well-understood
manifolds. For instance, this approach has allowed the Principal Investigator
to specialize a smooth surgery to the symplectic category and thereby determine
the existence of symplectic structures on an infinite family of four-manifolds
with exotic smooth structures. Further work will include extensions to
dimension six where such fibrations arise in the ground-breaking theory of
mirror symmetry.

A manifold is the generalization of a surface to other dimensions. For a
manifold to be symplectic it must have an internal structure akin to the space
of positions and velocities of a mechanical system such as a pendulum.
Symplectic manifolds are ubiquitous in topology, geometry and physics.
Recently great progress has been made in understanding symplectic manifolds,
especially of dimension four, but many basic questions remain unanswered.
For instance, given a manifold there is no general way to determine if it
permits the internal structure required for it to be symplectic. One way to
attack such a question is to require some additional structure on the manifold.
The Principal Investigator proposes to deepen our understanding of these
manifolds by appealing to a higher-dimensional analog of topographic maps for
measuring elevation. The additional structure could be thought of as the analog
of lines of constant elevation. In essence, the Principal Investigator plans to
develop two-dimensional maps that yield enough information to completely
determine the terrain (the four-dimensional manifold) and a legend that make
these maps interpretable.